Arctic System Science Land/Atmosphere/Ice Interactions A Data Management Pilot Study

The National Snow and Ice Data Center is undertaking a two-year project for management of data produced by the Land/Atmosphere/Ice Interactions (LAII) element of the Arctic Systems Science (ARCSS) program, and data required for modeling and process studies by ARCSS scientists. The goal of the project is to provide a central access point for the archiving and distribution of data. A central focus will be the development of strategies for improved data access and data interfaces with other national centers, and programs within other Federal agencies.